ITR/SI: Collaborative Telerobotics: Theory and Scalable Infrastructure

The proposal addresses the problem of simultaneous control of a machine - e.g. a robot - by a number of independent operators. Such situations are likely to appear, for example, when robots are controlled via Internet from various locations, and also in tele-immersion and teleworking. As a possibility, inputs from the participants may be combined to generate a single control stream - which is equivalent to the participants collaborating rather competing with each other. New fundamental reaserch issues that appear in systems with multi-user control of a single device - in the context of theory, algorithms, and system implementation - will be investigated.